Creation of the Imaginal Eye Disc in Manduca

Champlin

Analysis of the development of adult-specific tissues during
insect metamorphosis is providing a wealth of information regarding
mechanisms used to coordinate growth, patterning and differentiation
in animals. Adult development begins in the larva and precursors for
adult-specific structures such as the wing and compound eye are
typically present at the time of pupation in the form of discrete
packets of cells called imaginal discs. The familiar and
well-characterized example provided by the fruit fly, Drosophila
melanogaster, in which the imaginal discs are present through the
entire larval stage, appears to be a derived condition. In contrast,
imaginal discs in apparently the majority of holometabolous species
are not created until the final larval instar. Little is known about
the development of these "late-forming" imaginal discs. The current
studies focus on the late-forming imaginal eye disc of the moth,
Manduca sexta. Prior to forming the imaginal eye disc early in the
final larval instar, the adult eye precursor cells in Manduca
function as fully-differentiated larval epidermal cells. Members of
the Pax-6 and Six gene families are thought to play essential early
roles in eye development of all animals. Portions of these genes
have been isolated and their expression will be characterized as the
eye disc is being formed. A combination of in vivo and in vitro
studies will be done to follow gene expression as the larval
epidermal program is turned off and the adult eye developmental
program is activated. A central goal of these studies will be to
establish the regulation of these events by the hormones that control
insect metamorphosis, juvenile hormone and ecdysteroid.

Scientists and nonscientists of all ages and backgrounds find
insect metamorphosis a particularly appealing issue. This attracts
undergraduates from a variety of backgrounds to participate in the
research program. Undergraduates as well as graduate students will
be integral participants and it is anticipated that they will be
coauthors on primary research papers. The proposed studies are
expected to significantly broaden our understanding of the regulation
of insect metamorphosis and the findings will be communicated to the
general public as well as the scientific community